Metadata Model, Resource Discovery, and Querying on large-scale Multidimensional Datasets

The objective of the proposed research is to investigate novel approaches to supporting effective and efficient access to various geographic image databases over the Internet leading to design of
distributed geographic image retrieval systems. The research involves three research teams from: SUNY Buffalo, National Center for Science Information Systems (NACSIS) in Japan, and the University of Nantes in France. (IRESTE) The technical challenges are the creation of a new meta-level system for geographic image databases. To achieve this, research issues concerned with representation models for geographic data, relationships between metadata and resource discovery and efficient query processing in a distributed environment must be addressed. The problems addressed are critical to retrieval on large volume, multidimensional, distributed data over the Internet. Results can be broadly applied to numerous domain and interdisciplinary research areas.